Special Grant for Exploratory Research: Feasibility Study ofEfficient Tactile Equation Methods for the Blind

The Oregon State University will study the feasibility of printing efficient, easy-to-read tactile equations for blind people. They will use the normal equation format with fonts redefined to something resembling Braille symbols. The equations will be printed with a raised image printer and will be tested for readability by blind scientists and engineers. The investigator will try to find more efficient characters than the standard 2x3 Braille raised dot cell.